The Study of Intermediate Energy Photonuclear Physics with Polarized Beams and Targets

The photonuclear physics group at James Madison University is engaged in a
program of Compton scattering and meson production located at the Laser
Electron Gamma Source (LEGS) at the National Synchrotron Light Source (NSLS)
at Brookhaven National Laboratory (BNL), and the High Intensity Gamma Source
(HIGS) facility at the Duke Free Electron Laser Laboratory (DFELL)
laboratory at Duke University (DU). The work at both facilities is focused
on polarized photon beams and targets. At LEGS, the experiments will use a
polarized HD target especially constructed for this program. Polarized
targets are being developed for the program at the HIGS facility at the
University of Virginia (UVA), DU and JMU. These include several polarized
targets, including the polarizable scintillator target using material
fabricated at JMU.

The LEGS effort focuses on the distillation of high purity HD for target
production and the participation in the final phase of data collection. The
HIGS effort is concentrated on the fabrication of polarizable scintillator
targets and the construction of a detector assembly and testing laboratory.
This lab will be equiped using JMU money and will permit NaI detector
assembly and testing for HIGS. All the students are involved in distillery
operation. This provides them with an opportunity that is unique at JMU.
This is the only cryogenic laboratory of any kind on campus. In addition,
this distillery is unique in the world making this facility on the JMU
campus a critical component for the LEGS program and an ideal learning
situation for our students. The HIGS NaI detector testing lab will serve as
a starting point for the development of a nuclear physics lab course to
complement the existing lecture introduced by the PI and will allow
extension of a new department outreach program to include nuclear physics.
The preparation of polarizable target materials at JMU is generating a
closer connection with the material science group here. This builds
connections among the students in different research groups and connections
among the faculty.